Conference: Recent Developments in the Dynamics of Nonlinear Partial Differential Equations

This award supports participation in the international research conference "Recent Developments in the Dynamics of Nonlinear Partial Differential Equations" held August 3-7, 2026, at the University of Washington in Seattle, Washington. This event is especially timely in light of recent breakthroughs in both qualitative and quantitative analysis of nonlinear dispersive partial differential equations (PDE). The conference serves as a satellite event for the 2026 International Congress of Mathematicians taking place July 2026 in Philadelphia, Pennsylvania and represents an excellent opportunity for graduate students and other early-career researchers, particularly those in the Pacific Northwest region of the United States, to engage with leading experts and share their research.

The conference showcases the interactions between harmonic analysis, probability theory, and mathematical physics, with an emphasis on the techniques and concepts shaping current advancements in nonlinear and stochastic PDE. By bringing together researchers working across these areas, the event aims to promote collaboration and drive progress on key open problems in the field. Information about the conference is available at https://sites.google.com/view/icm2026pnw/home.